Teacher Enhancement

The Foundation for Advancements in Science and Education (FASE) is offering a two-year professional development project for secondary mathematics teachers. This project is designed to help teachers motivate students' interest in mathematics through effective classroom use of the PBS Instructional Television series "FUTURES, with Jaime Escalante" and student materials which are under development in the Multimedia Math Project (MMP), funded by the NSF Instructional Materials Development Program. The project will test and evaluate workshops for teachers to enhance the effective classroom use of both FUTURES and MMP; develop Workshop Facilitator Kits, which are the materials needed to produce such local workshops at nominal cost; and produce a multimedia (laser disk and supporting print material) presentation which will provide teachers with exemplary examples of motivational teaching strategies. Cost share of approximately 35% of the award is provided by the Department of Energy and by businesses such as ARCO and IBM.